Conference on Algal Experimental Systems in Cell Biological Research; Airlie, VA; June 25-29, 1988

This is a proposal requesting partial support for a conference on algal cells as experimental systems in biological research. The conference is very timely, important and well thought out eminent speakers. The conference should be very beneficial to biologist in general and to cell biologist in particular.